Improving Undergraduate Instruction Through the Acquisition of a Scanning Electron Microscope and an Energy Dispersive Analysis Facility

A series of experiments are being developed by the Geology Department at Colgate University to introduce undergraduates to modern analytical methods using the scanning electron microscope and the EDAX X-ray Analysis System. These experiments are being introduced into existing departmental courses with increasing levels of sophistication. The project also involves activities directed at larger audiences consisting of non-science students, faculty and secondary school students. In addition, the instrumentation is being used to enhance the existing program of cooperative student-faculty research, consistent with the departmental philosophy that problem-oriented research efforts are an essential part of undergraduate science education.